A Math Lab for Computer Experimentation: A Team Project Approach to Sophomore Mathematics

Students are using a new laboratory equipped with Macintosh IIcx and Everex 3000 computers in sophomore level courses required of mathematics majors. The computer experience in a team project setting is providing valuable training for majors and is expected to attract more able and inquisitive students into mathematics. The institution will contribute an amount equal to the award.//